Teacher Education Addressing Mathematics and Science in Boston and Cambridge (TEAMS - BC)

9354052 Shapiro Teacher Education Addressing Mathematics and Science in Boston and Cambridge (TEAMS - BC) TEAMS-BC is a collaboration of Harvard University, Massachusetts Institute of Technology, Wheelock College, University of Massachusetts-Boston, Boston Public Schools, and Cambridge Public Schools. The collaborative is addressing the weaknesses in the preparation of elementary, middle, and secondary science and mathematics teachers by (1) involving university and college science and mathematics faculty, along with education faculty and teachers, in the cooperative development of science and mathematics courses in teacher preparation programs; (2) emphasizing teaching for understanding and integrating content area and effective instructional practices; (3) creating ten Professional Development Schools which cooperate with the teacher preparation programs - four elementary, two middle, and four high school - with special emphasis on mathematics and science, training mentor teachers in the enquiry, hands-on, case study based approach being developed; and (4) establishing seminars at schools for teachers and university faculty to discuss problems in teaching effectively. Other emphases of the project are the recruitment of minority students to teacher preparation programs, creation and promotion of area business-academic-school partnership programs in which both pre-service and in-service teachers will participate in the application of mathematics and science in business and industry and use this knowledge to develop pedagogical materials for classroom use; and coordination with major mathematics and science initiatives in Boston and Cambridge.